RAPID: Data-driven Understanding of Imperfect Protection for Long-term COVID-19 Projections

This project will use data on COVID-19 reinfections and vaccine breakthroughs to build a model of how imperfect immunity affects SARS-CoV-2 pathogen transmission dynamics and subsequent effects on numbers of cases, deaths, and hospitalizations. A key factor dictating the long-term dynamics of COVID-19 is how population immunity against COVID-19 changes over time and exposure. Data on vaccination breakthroughs and reinfections in various states of the US and countries around the world create a unique opportunity to study immunity waning dynamics at the population level. The project will help understand the long-term risks of resurgence and severity of COVID-19, contribute to the US COVID-19 Scenario Modeling Hub, the US COVID-19 Forecast Hub, and the European COVID-19 Forecast and Scenario Modeling Hubs, and thus inform policymakers worldwide. The PI will integrate the lessons learned in an undergraduate on programming and a graduate-level class on Machine Learning for health. The project will also provide research and training opportunities through a senior capstone program and a minority-serving program.

The model will represent a class of imperfect protection in the presence of multiple variants. Popular models such as all or nothing, leaky, and time-dependent waning will be considered along with interpretable machine learning models. The models will be validated by their “generalizability” on held-out data. The unified model of immunity will be developed in a way that it can be integrated with various epidemiological models. As a demonstration, it will be integrated with a model that tracks various states an individual can be in, including all permutations of infections, reinfections, one-dose, two-doses, and boosters. Having these states over time, age groups, and variants, for a given model of imperfect protection allows for precise computation of immunity in the population at a given time. The overall approach will also be evaluated by the accuracy of US state-level cases, deaths, and hospitalization forecasts it produces.

This project was funded in collaboration with the CDC to support rapid-response research projects to further advance federal infectious disease modeling capabilities.